EAPSI:EAPSI: Investigation of the Wrinkling and Buckling Behavior of Layered Soft Materials with Applications in the Developing Brain

During the third trimester of gestation, the human brain evolves from having a mostly smooth surface to the characteristic 'wrinkled' appearance of the adult brain. How does this happen, and why does it sometimes go wrong? The mechanics community has been interested in these questions for decades, attempting to model the brain as a thin, stiff, growing layer (gray matter) attached to a thicker, softer layer (white matter). Recent mechanical tests, however, have revealed that gray matter is actually slightly less stiff than the underlying white matter, challenging many prior models and assumptions. Through collaboration with Dr. Feng Xi-Qiao of Tsinghua University in Beijing, China, an expert in the wrinkling and buckling of soft films, this project will explore the behavior of thin growing layers on substrates of a similar stiffness. This research will lead to a greater understanding of brain development in light of these recent findings.

For a stiff growing layer on a soft substrate, the formation of sinusoidal waves is expected, while the growth of a soft layer on a stiffer substrate will lead to creases with pinched valleys. The transition between waves and creases happens gradually in the region of interest for brain tissue. Using both analytical and numerical approaches, this research will explore the behavior of soft layered materials with stiffness ratios close to unity. Numerical simulations will be performed in the finite element software Abaqus, using the built-in linear perturbation analysis as well as user-defined material models that simulate volumetric growth. This NSF EAPSI award is funded in collaboration with the Chinese Ministry of Science and Technology.